CAREER: An Integrated Research and Education Program to Improve Environmental Sustainability with Biochar Technology

Biochar, also known as "biomass-derived black carbon", is a charcoal produced by the
combustion of biomass in an oxygen-limited environment (pyrolysis). Recent technological
advances make it possible to envision the development of an innovative environmental
sustainability strategy to convert carbon-rich agricultural residues (e.g. sugarcane bagasses,
sugar beet residues, peanut hull, and animal waste) into engineered biochars. This
sustainability strategy can produce multiple societal and environmental benefits: sustainable
management of agricultural resources, water conservation and reclamation, sustainable soil
productivity, carbon neutral energy production, and carbon sequestration. The overall objective
of this project is to build an integrated research and education program focusing on exploring
the environmental and societal benefits of using carbon-rich agricultural residues as feed stocks
for engineered biochars. The specific research objectives are to: 1) Create different types of engineered biochars
(i.e., untreated biochar, biologically activated biochar, and surface-modified biochar) from
representative agricultural residues; 2) Determine fundamental physicochemical properties of
the engineered biochars; and 3) Unveil mechanisms governing the sorption of contaminants
(i.e., nutrients, pharmaceuticals, and heavy metals) to the engineered biochars.
The specific educational objectives are to: 1) develop a new course on the impact of
biochar on environmental sustainability; 2) promote interest and participation of students in
environmental sustainability through early exposure; and 3) educate the greater community
about the environmental and societal benefits of the proposed activities.